Collaborative Research: Restricted Caches, An Experimental and Theoretical Study

The gap between processor speed and main memory access speed
can cause processors to spend much of their time waiting on memory accesses.
As the gap has grown, this memory latency has become an
increasingly significant bottleneck in processor performance.
Existing cache designs have worked well to fill the gap,
but new cache designs are needed as the gap continues to grow.
A promising new class, restricted caches, includes
skew caches, assist caches, victim caches, and other multi-lateral caches.
Experiments have indicated that some restricted caches
offer significant potential for improvement over traditional
set-associative caches. They also have revealed some interesting
phenomenon that are not possible in traditional caches. For example,
skew caches seem to exhibit self-reorganization.
However, no theoretical explanation exists for this behavior or for
why these restricted caches perform well.

The investigators study the performance of distinct restricted cache
structures and algorithms for managing them.
The investigators first identify an underlying structural difference
between restricted caches and traditional fully-associative
caches: all cache lines are not identical. Specifically, in a
restricted cache, unlike in a traditional set-associative cache,
there exist pairs of memory blocks whose sets of legal cache lines
are not identical and have a non-empty intersection.
Using this insight, the investigators evaluate and
compare different cache structures using new techniques.
Most other analytical studies of caches focus only on the performance
of algorithms for a given cache structure and do not explicitly
compare the effectiveness of distinct cache structures. The
investigators also study the performance of various algorithms
for these cache structures using a variety of techniques such
as resource augmentation, standard competitive analysis,
and trace-based simulation. Their results indicate that traditional
cache management algorithms behave very differently on restricted
caches than they do on traditional set-associative caches.
For example, the least recently used (LRU) algorithm that is strongly
competitive for traditional caches is not competitive at all for
restricted caches unless explicit rearrangement of items in the
cache is allowed. Finally, the investigators construct a
trace warehouse to facilitate the comparison of distinct trace-based
simulation studies as well as to help new researchers learn this
this evaluation technique.